Foundations of Computational Mathematics Conference, August 5 - 14, 2002

The investigator and his colleagues organize the third
Conference on Foundations of Computational Mathematics at the
Institute for Mathematics and its Applications (IMA), University
of Minnesota on 5-14 August 2002. Deepening the understanding of
the mathematical processes that underlie fast computation and
computer simulation is the principal goal of the meeting. The
mathematical content covers fields of research at the interface
of engineering, computer science, and pure mathematics, but
focused on computation. The program includes 18 3-day workshops
and 18 plenary speakers. The plenary talks and workshops span
subjects of vital interest to the nation's infrastructure,
economy, and defense. The project supports participation by
postdocs, graduate students, junior participants, women and
minorities as well as plenary and semi-plenary speakers and
workshop organizers.
Large-scale computation and the implementation of
mathematical models for complex physical and societal phenomena
are of fundamental importance to the nation's economy.
Computation is also the backbone of the sciences supporting the
nation's defense. Large-scale computation is the engine of
numerical models for complex physical phenomena occurring at many
scales. Fast computation and processing of the ever-increasing
data sets obtained from various sensors is critical to the new
military. The purpose of this major meeting, held only every
three years, is to further the understanding of the deep
relationships between mathematical theory: analysis, topology,
geometry and algebra, and computational processes as they are
evolving in tandem with the modern computer. The topics to be
addressed include large scale computation and high performance
computing as occurs in atmospheric and groundwater modeling,
computer aided design and animation, data, image and signal
processing, modeling network traffic, quantum computing, learning
theory, optimization and control. Sustaining the nation's
advantage in these vital areas relies on understanding the
foundations of computational science. The meeting involves
350-500 researchers in 18 workshops over a 10-day period, with
special plenary sessions attended by everyone. A large contingent
of graduate students and other young scientists are
participating, and the program is designed to promote intensive
interaction among the participants. Several panels are devoted to
identifying the most promising directions for future research.
Published proceedings, web-based materials, and the conference
sessions themselves serve as launching pads for focus and special
interest groups for future interactions in a range of subjects at
the interface of mathematics and computation.